I-Corps: Novel Bio-Based Chemical Feedstocks for the Polymer Industry

This Innovation Corps project will explore the potential of developing a marketable innovation based on the use of 3-ketoacyl ACP synthase III (KASIII) enzymes. KASIII catalyzes the first carbon-carbon forming reaction in fatty acid biosynthesis, and thus determines the chemical nature of the omega of the fatty acids produced.

The proposed innovation is based on engineering of of the biocatalyst, KASIII, and would result in the production of bi-functional molecules that can act as the monomer percusors for making bio-based plastics. This innovation will provide novel bi-functional, bio-based feed stocks to the emerging bio-renewable chemical industry for the production of novel "green" plastics and specialty chemicals. The proposed I-Corps team envisions a technology that will be initially targeted to the synthesis of hydroxy-fatty acids, but can be readily advanced upon to produce other bi-functional monomers (e.g., amino-fatty acids, which can be used to produce polyamides). If successful, this technology will lead to chemical products that can act as substitutes for petroleum-based chemical products, and be precursors for novel bio-based products.